P-Delta Effect and Frame Stability in Seismic Response and Code Design

This project is concerned with three related issues affecting the seismic structures, particularly steel structures. The first one is the incremental collapse issue, which may arise when a structure has inadequate strength and inelastic stiffness to prevent continuous drifting of the structure due to P-delta effects. The second issue is the column strength requirements under gravity plus seismic design loads, considering the interaction between axial loads and bending moments. The third issue is column buckling under overloads during earthquakes. The objective of the research is to investigate these problems and to develop feasible solutions. Parameter studies through computer simulation will be performed to account for the effects of the geometric and material nonlinearities involved research. The results of the study will be presented in the form of design recommendations that can be readily implemented in engineering practice. The study will improve the current code design or seismic stability of steel frames.